Establishing a DNA Synthesizing Facility for the Molecular Biology Group

This proposal requests funds to obtain a DNA synthesizer, an HPLC and ancillary equipment. The instrumentation will provide oligonucleotides which will be used in a variety of projects for the sequencing of DNA, mapping of transcripts by primer extension, site directed mutagenesis and specific probes for the analysis of genomic DNA. The projects proposed include studies of the regulation of gene expression in lambda and yeast, the regulation of gene expression during development in plant and mammalian systems, self-splicing of RNA from T4 phage and DNA repair processes in E. coli.